Enhancing Capacity for Research and Education at the CCMI Little Cayman Research Centre

Little Cayman is one of the least developed tropical islands in the Caribbean, yet it provides a unique opportunity for research because of the facilities developed by the Central Caribbean Marine Institute (CCMI) in 2005. CCMI's Little Cayman Research Centre (LCRC) provides an ideal facility where the reefs are under minimal local anthropogenic stress and are far removed from continental influences. Due to low population density and well-established marine protected areas, Little Cayman provides the rare opportunity to separate anthropogenic from environmental effects on coral reefs and their inhabitants. LCRC provides the laboratories, classroom, accommodations, vehicles, boats, and oceanographic instrumentation for scientists to conduct this vital research. Research at LCRC has led to major breakthroughs including the discovery of new marine invertebrates, improved understanding of low light reefs, advanced paleoclimatic reconstructions, a new physical oceanographic model for diurnal heating of shallow seas, and simulated ocean pH for 2100 to evaluate interactions between ocean acidification and calcification. This work is transforming knowledge and understanding of fundamental oceanographic processes and of mechanisms that drive coral reef stress and resilience. The facilities improvements shall further advance discovery and scientific understanding while promoting teaching, training, and learning through programs held at LCRC: K-12 Marine Ecology and undergraduate courses, the Little Cayman Research Experience for Undergraduates (REU), the Earthwatch Institute, and a new Dive with Heroes program for disabled US military veterans.

The increasing number of new partnerships with leading academics and institutions highlight the importance of LCRC to the wider community and are resulting in more visiting scientists. This proposal seeks to meet the growing needs of the visiting scientists and students at LCRC by i) renovating the main building to double on-site accommodations intended for visiting scientists and graduate students, (ii) modifying and updating common areas (dining room, bathhouse) to support the increase in occupancy during its research and education programs, and (iii) upgrading to hurricane-rated windows and doors in order to reduce the chances of weather adversely affecting the research projects and to improve the safety of both people and equipment. The field station renovations in this proposal will allow the programs at LCRC to run more efficiently and simultaneously due to the increased capacity and capabilities. The programs conducted at LCRC shall continue to be broadly disseminated though peer-reviewed scientific publications, scientific conferences, a monthly news channel segment, newspaper and magazine articles, weekly lecture series, and social media network updates. For more information about LCRC visit http://reefresearch.org/lcrc/.